Developing Linear-time Model-checking Technology

Proposal Number: CCR-9988322
PI's Name: Vardi, Moshe Y.
Institution: Rice University
Title: Developing Linear-Time Model-Checking Technology
Project-summary-paragraph:

Model checking is a key technology in formal verification.
As it is generally practiced today, model checking is basically
an efficient symbolic search procedure based on fixed-point computation
that checks whether a model of the design satisfies given CTL
specifications. In spite of the phenomenal success of CTL-based model
checking, CTL suffers from several fundamental limitations as
a specification language, all stemming from the fact that CTL is a
branching-time formalism: the language is unintuitive and hard to
use, it does not lend itself to compositional reasoning, and it is
fundamentally incompatible with dynamic validation.
In contrast, the linear-time framework is expressive and intuitive,
supports compositional reasoning and semi-formal verification, and
is amenable to combining enumerative and symbolic search methods.
Surprisingly, the linear-time framework, even though it preceded CTL,
and does not suffer from its weaknesses, has not enjoyed the same
intensive research focus as CTL, resulting in a much less mature
technology. This projects builds upon the theoretical foundations of
the linear-time framework that have been laid over the last 20 years,
and focuses on generating a body of knowledge that industry can convert
into a robust technology.